CAREER: Coastal Sea Level, High-Tide Flooding, and Local Ocean Dynamics

Rates of sea-level rise are increasing, and flooding of U.S. coastlines is occurring more frequently. The primary goal of this project is to investigate how three different processes, the discharge of water from rivers into the coastal ocean, the exchange of waters across the shelf break, and the warming of waters on the shelf affect coastal sea-level trends. The timing of these processes with regard to high-tide flooding is of particular interest because the processes can enhance or dampen the flooding events. While there has been much attention on global sea-level rise due to ocean warming and melting ice sheets, this project will fill in a gap to look at the local effects that influence sea level along the U.S. coast on shorter timescales as well. The investigator plans to analyze several existing datasets and ocean models to inform coastal resilience managers about high-tide flooding projections and to contribute toward the development of hazard mitigation strategies. In addition, outreach to the public via a series of radio stories on coastal sea-level rise and training of undergraduate and graduate students in this increasingly important topic area are included in the project.

For this project, a detailed study of relationships between coastal sea level, high-tide flooding, and local ocean dynamics in the United States will be performed. The analysis will be based on available numerical modeling and observational products over a broad range of timescales, from less than a day to more than a decade. The overarching hypothesis is that local coastal, shelf, and slope ocean dynamics are an important control on U.S. coastal sea-level changes on daily to multi-decadal timescales. Specific tasks are 1) to establish basic magnitudes and scales of sea-level response to river discharge and quantify the role of discharge on high-tide flooding and coastal sea-level trends, 2) to identify coupled modes of bottom density and coastal sea-level variation and determine the impact of shelf break exchange on coastal sea level, and 3) to explore relationships between marine heatwaves and sea-level extremes and estimate the contribution of shelf warming to coastal sea-level rise.